Topics in the Theory of Randomization

The investigator will explore theoretical properties of randomization
procedures with applications to sequential randomized clinical trials.
The first problem the investigator will address is sequential monitoring
of randomization tests following restricted randomization, which will
require extensive use of techniques in sequential analysis and
nonparametric statistical inference. The second problem the investigator
will address is the development and properties of response-adaptive
randomization procedures, including procedures designed for continuous
responses, and survival responses with censoring. The third problem the
investigator will address is certain theoretical properties of
covariate-adaptive randomization procedures, particularly
randomization-based inference procedures following covariate-adaptive
randomization. The ultimate goal of the investigator is to complete a
systmeatic study of randomization, its properties, and its relevance in
clinical trials.

The investigator will explore properties of randomization, the hallmark of
a well-designed clinical trial. The first problem the investigator will
address is sequential monitoring of randomized clinical trials, which
refers to making early decisions about the effectiveness of new therapies
when compelling evidence is accrued at an interim point in a clinical
trial. There are currently no sequential monitoring techniques available
that allow the randomization itself to be incorporate into these
decisions, and hence current methodology completely ignores the design of
the trial in the analysis. The second problem the investigator will
address is response-adaptive randomization, and he will develop new
procedures for clinical trials where the outcome is time-to-event or some
continous measure, e.g. cholesterol level. These response-adaptive
procedures are attractive from an ethical point of view, because they seek
to maximize power to detect a relevant clinical outcome, while
simultaneously minimizing the expected number of treatment failures
patients will experience while participating in the clinical trial. The
third problem the investigator will address is proporties of
covariate-adaptive randomization procedures, which is designed to minimize
tial imbalances in important confounding variables that might bias results
of the clinical trial. Each of these topics is relevant to today's
clinical trials in the drug development phase of new pharmaceuticals.